Thermosonic Bonding for Flip-Chip and Ball-Grid-Array Connections

This award provides funding for developing a new technology, called Thermosonic Bonding, for connections in electronic packaging applications. Such a technology and the knowledge base resulting from the studies will have a profound impact on solderless packaging technologies in manufacturing. The resulting technologies can also be useful to support prototyping facilities and education in manufacturing engineering. The technology can simplify the prototyping procedures for multichip (MCM) modules. Such technologies are critical to low-cost and environmentally sound prototyping and manufacturing methods.